The Existence, Critical Behavior, and Physics of Lattice Models of Quantum Gravity

Professor Renken will initiate a new program of computational research in the subject of quantum gravity. He will use the mathematical technique of dynamical triangulation and the renormalization group to model important features of quantum gravity. The problem of quantum gravity in 3 or 4 dimensions is currently a very active area of theoretical research. Although it is impossible to predict whether this work will provide a final theory, it is highly likely to generate significant advances in our understanding of thermodynamics and continuum limits in candidate lattice theories.